Fundamental Experimental Properties of Mesoscopic Systems

9510416 Webb Low temperature transport and magnetic susceptibility measurements will be carried out on a variety of mesoscopic structures. The experiments will likely elucidate the nature of the persistent current in isolated rings and arrays of rings and the role of phase coherent electrons in screening a single magnetic impurity. These measurements will require fabrication of the highest resolution magnetic detectors currently available. Other investigations of magnetic properties include non-periodic fluctuation effects, study of the Kondo Effect in mesoscopic dots, and an investigation of the dynamic properties of mesoscopic systems using dc squids in nuclear magnetic and electron spin resonance experiments. %%% The physics of small structures provides the foundation upon which future electronic technologies will be based. It is consequently extremely important that all of the potentially relevant physical properties of these systems are identified and understood. The current research carries out such systematic investigation of the low temperature magnetic properties of ultrasmall devices. During the course of these investigations some of the most sensitive detectors available anywhere, which can discern very small spatial dimensions, will be built and tested. ***